U.S.-Korea Cooperative Research: Supersymmetry Phenomenology and Superstrings

9319788 Dine This award provides funds to permit Dr. Michael Dine, Department of Physics, University of California, Santa Cruz, to pursue with Dr. Soo-Jong Rey, Department of Physics, Seoul National University, Korea, for 36 months, a program of cooperative research on supersymmetry phenomenology and superstrings. In particular, this research seeks to provide a theoretical and phenomenological understanding of low-energy supersymmetry and superstring theories. Theoretical arguments suggest that nature may be supersymmetric. If this is so, it must be described by a supergravity theory, and supergravity must be embedded in a more fundamental theory such as the heterotic string. The collaborators will use this theory to investigate several aspects of low energy supersymmetry phenomenology. The PI is respected as a leader in the field of elementary particle physics whose work has had a major influence on numerous subdisciplines including supersymmetry, supergravity, and superstring theory. His Korean collaborator also is an active string theorist. This project is relevant to the objectives of the U.S.-Korea Cooperative Science Program which seeks to increase the level of cooperation between U.S. and Korean scientists and engineers through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Korean participation in the project is supported by the Korea Science and Engineering Foundation (KOSEF). ***